CAREER: Self-Regulating Power-Aware Interconnection Networks

Power is becoming increasingly as important, if not more important than
performance in many digital systems ranging from PCs and servers to
Internet routers and embedded systems-on-a-chip. While there has been
substantial research exploring the power efficiency of the processing
and memory elements of digital systems, research investigating the power
consumption of communication elements has been lagging. As a wide range
of digital systems becomes increasingly interconnected, it is now
both timely and critical to explore power-aware interconnection networks.

In this proposal, we outline our plans to research, develop and build
self-regulating power-aware interconnection networks that trade off
power and performance automatically while meeting design constraints. In
these networks, power-aware router and link mechanisms export knobs by
which network power and performance can be adjusted. Policies then
control these knobs to deliver network power-performance that meet
design goals. Self-regulating power-aware networks alleviate designers
from the daunting task of reconciling two highly divergent goals -
high performance, and low power.

In highlighting and demonstrating the importance of power awareness in
networks, our proposed research advances a deeper understanding of
networks from a fresh perspective, with a potential for high-impact
contributions in research. In addition, we see our research leading to
power efficiency being an integral part of networking curriculum.